Computer Science Research Equipment

A workstation cluster will be provided for researchers at Boston University for research in the Department of Computer Science. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be principally in the area of reconfigurable reliable data storage, but will also be used for database management, performance analysis, knowledge acquisition, and database query optimization.